Doctoral Dissertation Research in Studies in Science, Technology, and Society

Dissertation student: Peter J. Ramberg; Dissertation topic: "The Early History of Stereochemistry, 1874-1920." Mr. Ramberg is studying several cases in the early history of stereochemistry that show how chemists became convinced that they were dealing with a new cause of chemical phenomena. He is investigating how and why chemists came to the conclusion that spatial characteristics were a "real" cause of chemical phenomena. Using the unpublished manuscripts of Johannes Wislicenus and Victor Meyer, as well as the published chemical record, Mr. Ramberg is examining the birth of stereochemistry and is exploring the reasons for its appeal to chemists as well as the reasons some objected to its importance. Following an examination of the birth of stereochemistry, Mr. Ramberg is also examining three early case studies where stereo chemical principles were invoked: 1) theories of unsaturation, 2) nitrogen compounds, and 3) the discovery and explanation of the Walden inversion. The story of the adoption of and resistance to stereochemical principles reveals many assumptions and undercurrents in chemical theory of the late 19th century. The issues raised include the role of spatial properties in chemical explanations, the reinterpretation of the old theoretical language of chemistry, the relationship between chemical theory and chemical evidence, the shift in focus from composition to transformation, the autonomy of chemistry from physics, and the peculiar concentration of stereochemists in Germany.